NSF East Asia and Pacific Summer Institute for FY 2012 in Japan

This action funds Benjamin James Wright of New Mexico State University to conduct a research project, entitled "Developing Formal Models of Dishonest Negotiation," during the summer of 2012 at Wakayama University in Wakayama, Japan. The host scientist is Dr. Chiaka Sakama.

The Intellectual Merit of the research project is in revealing how negotiations can be expressed in a different way and then viewed from a new perspective. A likely outcome is a new perspective on what is possible in mutl-agent negotiations and with multi-agent action languages, which can be used to represent new formal models.

Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.